Student-centric Elementary Science Teaching

Curriculum materials are not a script for teachers to follow, but a tool over which they exert agency as they make decisions about how to adapt the materials for use in their specific context with their particular students. Indeed, adaptation is necessary in order to ensure that teachers can provide learning experiences for all students. Teachers' adaptations make a significant impact on both instruction and on students, and can have a considerable effect on curriculum-driven education reform interventions. While researchers have begun to identify patterns in teachers' curriculum adaptations, little is known about which kinds of adaptations support student learning or how teachers' capacity to adapt materials develops over time. Most current studies provide only a snapshot of teachers' curriculum implementation--often their first use of the materials--as opposed to successive curricular enactments. Because research indicates teachers need at least two iterations with curriculum materials in order to use them purposefully and skillfully, further research is needed to understand how teachers' adaptations change with experience using curriculum materials. This project will contribute valuable knowledge about how teachers' capacity to adapt curriculum materials develops over time, and has implications for the development of curriculum, professional development, and teacher education efforts to promote culturally-responsive instruction (CRI) that supports all learners.

This Level II Exploratory Project in the Teaching Strand of the DRK-12 program seeks to better understand how teachers' capacity and willingness to customize instructional approaches to meet disciplinary standards and the science learning needs of all their students develops through initial practice and successive enactments of curriculum materials. This work will address current gaps in the literature and contribute to an overall understanding of how teachers develop the capacity to use science curricula in ways that advance the goal of supporting all students' learning. The overarching goals of the project include: 1) implementing a high-quality practicum-based professional development model for K-6 teachers; 2) conducting a comprehensive and rigorous program of research to examine associations between teachers' learned adaptations of curriculum over successive enactments of materials and pedagogical design capacity for CRI; and 3) disseminating project outcomes to a variety of stakeholders to produce broader impacts. Over three years, this project will work with a cohort of 30 elementary teachers, 30 preservice teachers, and approximately 1700 students. Professional development will be provided to introduce teachers to the Explore the Salish Sea curriculum, which utilizes marine phenomena in the local environment to help students meet the Next Generation Science Standards. By examining four successive enactments of curriculum materials, the project will provide insight into the process by which teachers develop curricular context knowledge (CCK), but also how the curriculum functions to engage students with science ideas and practices in particular contexts, which has implications for how teachers connect their CCK to CRI. CRI recognizes that all students are individuals who, regardless of group membership, have unique interests, abilities, and background experiences that can serve as assets in their learning. Through collective case study methods, the researchers will document and examine the ways in which elementary teachers develop the capacity to adapt curriculum materials to be responsive to their students, and the role that developing CCK plays in this process. This work will help develop a more robust understanding of what it means to be 'culturally responsive' in elementary science, and to advance practice by developing context-rich representations of curriculum adaptation to share with stakeholders with similar contexts and goals. This project is funded by the Discovery Research preK-12 program (DRK-12) that seeks to significantly enhance the learning and teaching of science, technology, engineering, and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models, and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.